Physical Studies of Xanthine Oxidase and Trimethylamine Dehydrogenase

Hille 9420185 A study of the biophysical properties of two oxidoreductases, xanthine oxidase and trimethylamine dehydrogenase, builds on past success in the PI's laboratory. The goal of this work is to fully characterize the kinetics of electron transfer within the two subject proteins and ascertain its role in catalysis. Xanthine oxidase from cow's milk catalyzes the oxidative hydroxylation of xanthine to form uric acid, a reaction that takes place at the molybdenum center of the enzyme. For a variety of reasons, the enzyme has become the prototypical molybdenum center of the enzyme. For a variety of reasons, the enzyme has become the prototypical molybdenum hydroxylation of substrate. Studies of electron transfer among the four redox-active centers of this enzyme will be pursued along two different lines: (1) pulse radiolysis studies in D2O and as a function of temperature will be performed with the aim of extending past work by the PI; and (2) use will be made of a ruthenium center that has been covalently attached near the molybdenum center of xanthine oxidase to very rapidly introduce reducing equivalents into the enzyme by flash photolysis. The advantage of this protocol is that the initiation of electron transfer is an intramolecular process, making possible studies at cryogenic temperatures. Other work will focus on several related aspects of trimethylamine dehydrogenase, an enzyme from the methylotrophic bacterium W3A1 that catalyzes the oxidative demethylation of trimethylamine to dimethylamine and formaldehyde. The enzyme possesses a covalently linked flavin mononucleotide cofactor and a 4Fe/4S (ferredoxin-type) center, and thus represents a useful system with which to extend past work on xanthine oxidase. The work includes: (1) studies of the rates of electron transfer between the two redox-active centers using pulse radiolysis; (2) characterization of the reaction of reduced trimethylamine dehydrogenase with its physiological oxidant, electron-transfe rring flavoprotein; and (3) development of a photolabile slow substrate for trimethylamine dehydrogenase that will be suitable for a Laue experiment in which the progress of the reaction at the active site is followed by timeresolved crystallography. %%% The experiments are designed to address two goals. The first has to do with how protonation/deprotonation events modulate electron transfer into and out of organic cofactors that are redoxactive (e.g., flavins and quinones), using xanthine oxidase and trimethylamine dehydrogenase as the experimental systems. The second involves a study of how the two cofactors of the enzyme trimethylamine dehydrogenase interact with one another, and the role of this interaction in catalytic turnover. This work involves a combination of kinetic and crystallographic approaches aimed at gaining a more complete understanding of how this enzyme functions mechanistically. ***